Dissertation Research: Are Relatively Small Populations more Vulnerable to increased Inbreeding Depression and Decreased Heritability for Traits with a Quantitative Genetic Basis

0105148
Milligan

The performance of individuals within populations and the ability of
populations to respond to selection, e.g., due to environmental
changes, have received special attention by conservation biologists.
In particular, small relative to large populations are generally
regarded as either containing individuals expressing deleterious
genes or lacking sufficient genetic variation to respond to selection. The
quantitative genetics measures of inbreeding depression and
heritability quantify these effects, and ideally such measures would
be available for both small and large populations of the same
species. This study is using innovative molecular genetic methods to
measure these quantities in populations of Aquilegia (Ranunculaceae;
columbines) that vary dramatically in total population size. DNA
genotypes will be used to determine how related inviduals are within
the populations; statistical models will then be used to estimate the
quantitative genetics parameters describing inbreeding depression and
heritability. Because populations of different sizes will be studied,
a relationship between these measures and population size can be
detected if it exists.

Conservation biology has increasingly relied upon molecular genetic
variation. However, to fully understand how that variation relates to
adaptive differentiation, evolutionary potential, and resistance to
the threat of extinction--all critical concerns of conservation
biology--a better understanding of the quantitative genetic basis of
adaptive traits is critical. Furthermore, the assumptions mentioned
above about how population size affects that basis require empirical
testing in natural populations. This novel study addresses and
empirically tests important phenomena in biological conservation using
measurements of quantitative genetics in field environments.